REU Site: Environmental Chemistry and Biochemistry in Alaska

Abstract OPP-9501808 This program would provide an organized opportunity for undergraduates in a relatively isolated geographical area to gain research experience in environmental chemistry and biochemistry. We have proposed a diversified approach centering around environmental and biotechnical applications of chemistry and biology in which students work with committed faculty. This research focus, spotlighting chemical and biochemical components of environmental and ecological studies specific to high latitudes, is appropriate for undergraduates. Core disciplines in chemistry and biochemistry are well represented with projects. Research projects include environmental chemistry, molecular evolution, bioinorganic chemistry, molecular biology of marine organisms, and atmospheric chemistry. The program will recruit undergraduate students who are majoring in chemical or biological science, and encourages women and minorities such as native Alaskans who are attending the University of Alaska to apply. We wish to continue our cross- cultural approach in which Alaskan students exchange scientific and social perspectives with students from the lower 48. A summer seminar series by both local faculty and visitors is included in our program to increase the exposure of the students to a wide range of chemistry and biochemistry. Ethics and honor in science discussions are also held weekly and outside speakers will be invited. Evening workshops on graduate school admission and selection, as well as discussions of career opportunities will be held. We also will develop an improved follow-through and tracking of students to monitor what careers the students pursued.